Initiation and Growth of Tearing in Ductile Sheet Metal

This project is to study plastic folding and tearing mechanisms of sheet metal and to develop models of fracture initiation and growth. The program will consist of theoretical and experimental phases which involve mixed mode tearing and will be applicable to a wide range of engineering problems and loadings.